Collaborative Research: CNS Core: Medium: Foundations and Scalable Algorithms for Personalized and Collaborative Virtual Reality Over Wireless Networks

Virtual reality (VR) over wireless networks can provide an interactive and immersive experience for multiple users simultaneously and thus has many applications, especially in VR-based education/training. However, satisfactory personalized user experience in such wireless immersive services demands stringent performance requirements, including: (1) high-speed and high-resolution panoramic image rendering; (2) extremely low delay guarantees; and (3) seamless user experience. Besides the aforementioned requirements, collaborative user experience requires both scalability and fairness of VR service. Existing VR systems heavily rely on various heuristic designs and do not efficiently exploit VR content commonality and its predictability, which impede their large-scale deployment. This project aims to develop the theoretical foundations and complete implementation of a system for providing both personalized and scalable collaborative VR experience over wireless networks. This project will integrate machine learning, wireless networking, and mobile computing to enable high-quality and scalable wireless immersive applications on commodity mobile devices. The theory and practical implementations to be developed in this project will be integrated into both undergraduate and graduate curriculum, as well as exposing K-12 students to state-of-the-art wireless and VR technologies.

The proposed designs are motivated by a number of insights that we have developed from our preliminary work, including (1) viewport-adaptive rendering; (2) commonality among VR content for multiple users to enable multicasting; and (3) predictability of VR content to enable prefetching. The proposed research will contribute to and advance both theoretical and system-oriented research in the fields of wireless networks and virtual reality. The project explicitly exploits the unique characteristics of both immersive VR applications and wireless networks, and propose the following four interdependent research thrusts: (I) Dealing with network and prediction uncertainties:
This thrust will investigate algorithm designs to optimize personalized user experience given both network and viewport prediction uncertainties. (II) Meeting stringent immersive service requirements: This thrust will develop wireless scheduling algorithms that provide stringent immersive, personalized service guarantees for multiple VR users. (III) Supporting smooth collaborative interaction: This thrust will focus on the algorithm design that leverages the VR content similarities and predictabilities that naturally emerge during collaborative interactions. (IV) Scalable system integration, implementation, evaluation, and deployment: This thrust will integrate Research Thrusts I through III into a holistic system, perform system-level optimizations, and evaluate it through lab experiments and real-world classroom deployment.